U.S.-Argentina Program: The Second San Luis Symposium on Surfaces, Interfaces and Catalysis, Mar del Plata, Argentina, April 12-19, 1999

9811581
Tysoe

This Americas Program award will support travel and related expenses for 15 senior US scientists and 10 US and Latin American students to participate in the Second San Luis Symposium on Surfaces, Interfaces and Catalysis, to be held in Mar del Plata, Argentina, on April 12-19, 1999. Organizers are Dr. Wilfred Tysoe, University of Wisconsin-Milwaukee, and Dr. Giorgio Zgrablich, Universidad Nacional de San Luis, Argentina. Topic of the conference will be "Chemistry and Physics in Two Dimensions: Experimental and Theoretical Studies of Adsorption, Reactivity and Heterogeneous Catalysis." The guiding body of the conference will be an international organizing committee comprising scientists in the area of surface science from the United States, Europe and Latin America. The goal is to facilitate collaborations, interactions, and transfer of ideas between countries, with the long term goal of fostering north-south scientific interactions. The symposium will include both a research part and a summer school. The summer school will allow students to take advantage of the presence of a number of experts in the area of surface science from US, Latin America and Europe.

***